Mathematical Sciences: Heegaard Surfaces in Haken 3-Manifolds

This project concerns low-dimensional topology. Specifically, it deals with the interaction of Heegaard-surfaces and incompressible surfaces in 3-manifolds, and it describes the possible theoretical as well as numerical impact of such a study.